U.S.-Hungary Jt. Fund Research on DNA Sequence Recognition by Type II Restriction Endonucleases and Modification Methyltransferases

The primary objective of this US-Hungary research project under the Hungary Joint Fund between Dr. Antal Kiss, Institute of Biochemistry, Hungarian Academy of Sciences, and Dr. Richard Roberts, Cold Spring Harbor Laboratory, is to purify restriction endonucleases and modification methylases for enzymological and crystallographic studies. Experiments are planned to identify the regions of these enzymes that are responsible for sequence specific DNA recognition. This will involve the preparation of hybrid methylases and the isolation of specificity mutants, plus an extensive algorithmic analysis of the amino acid sequences of restriction endonucleases and of modification methylases. The algorithms and programs developed would be used to detect, define and search sequence motifs of functionally related proteins. These motifs could then help in interpreting new sequence data. A database of motifs will be built and maintained. The results of these studies will increase our understanding of how restriction endonucleases and DNA-methylases work. This project in molecular biology fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool resources in areas of strong mutual interest and competence.